Research Internships in the Neural and Behavioral Sciences

This award provides funds to Northern Arizona University to establish a Research Experiences for Undergraduates Site in the areas of neural and behavioral sciences. The research internship is complemented by an integrated educational program that provides training in research design statistics, reading complex scientific literature, introduction to advanced technologies in research design and implementation, seminars in the history and philosophy of science, and an integrated lecture-discussion series that covers the range of research topics in neural and behavioral sciences. Scientists from the Department of Biology and the Department of Psychology will sponsor 12 internships for Native American undergraduate students. The Department of Occupational and Technological Education and the Department of Engineering will provide training in advanced technologies, including basic computer training and training in the application of computer assisted design systems for production of research software and instrumentation. The Science and Mathematics Learning Center will also provide training in the basics of experimental design, statistics, reading scientific literature, scientific and technical writing, and collaborative learning. Scientists from all participating departments will contribute lecture-discussion series on neural and behavioral research.